Mathematical Sciences: Extensions of Hilbert's Tenth Problem

The principal investigator intends to try to solve the following problems: Problem 1: Prove (or disprove) that the Diophantine theory of the rational numbers is undecidable. Problem 2: Prove (or disprove) that the Diophantine theory of the field of rational functions, in a letter t with coefficients in the field of complex numbers, is undecidable in the language of rings with constant symbols 0, 1 and t. Problem 3: Consider a machine M which can add or multiply integers. Let f(x) be a polynomial with integer coefficients, X=(X1,...,Xk). Let n(f) be the least number of multiplications required for the evaluation of f at an arbitrary integer input X by M. Prove (or disprove) that the function which associates n(f) to an arbitrary polynomial f is recursive; in other words determine whether one can effectively find the necessary number of multiplications for the evaluation of a given polynomial. These problems, particularly the last, are of interest to computer scientists as well as mathematical logicians. In some sense the existence of this project is a demonstration that recursion theory has returned to its roots and is capable of addressing practical problems.